Mechanics and Thermal Structure of Compressional and Extensional Wedges

This grant will support continued work on the mechanics of sedimentary wedges. The PIs have developed a kinematic and thermal model of an eroding critically tapered fold-and-thrust belt, using the steady-state fold-and-thrust belt in western Taiwan as the center piece of modelling efforts. The principal new project is to extend mechanical and thermal models to the extensional counterparts of compressive wedge, namely the normally faulted wedges of material that overly shallow angle detachment faults. The PIs have developed a critical taper model of these structures which (like the model of a compressional wedge) requires good structural and especially pore-fluid pressure data to be tested. They have recently acquired an extensive set of industrial seismic and drilling data from the Brazos Ridge extensional wedge in the Gulf of Mexico for this purpose. They will develop a complete mechanical, kinematic and thermal model of an extensional wedge, using the Brazos wedge as the main example.